SBIR Phase I: Novel Adsorption Based Process for Upgrading Biogas from Anaerobic Digestion

This SBIR Phase I project will develop a new technology to remove carbon dioxide from biogas. The innovation lies in using a bed material of zeolite-activated carbon to adsorb carbon dioxide. Biogas is a combustible mixture of methane and carbon dioxide (CO2). Raw biogas (60-70% methane) can be used as a low-grade fuel for low value on-site power generation. Commercial projects to upgrade biogas to pipeline quality natural gas, so-called “Waste to Energy” processes, target much higher value for the methane.

The broader/commercial impact of the project will be in generating an alternative source of energy, which in turn will reduce greenhouse gas emissions.